ITR: Private Prediction Using Selective Models

This research will study the SPMP (Selective Private Model-based
Prediction) problem demonstrated with the following scenario: A client
with a private input wants to use a server's private model to make
predictions; however, neither side wants to disclose its private data to
anybody. More specifically, the research will study the problem for
selected models including the Hidden Markov Model, the Neural Network
Model, the Bayesian Network Model, and the Decision Trees Model. The goal
is to develop efficient and practical solutions that enable such type of
privacy preserving prediction.

The project will investigate two approaches: commodity-server approach and
multiple-server approach. The commodity-server approach uses the
commodities (data) from a third party to preserve the confidentiality of
the private data. The multiple-server approach uses duplicate servers so
no single server can learn all information about the client's data. Based
on these two approaches, various data disguising techniques will also be
studied.

Efficient solutions to the SPMP problems enable model owners to provide
new forms of e-commerce services while protecting customers' private
information. Furthermore, the results, methodologies, and the building
blocks gained from the proposed activity can provide invaluable
understanding and insights into the Secure Multiparty Computation (SMC)
research, and help to advance and expand the areas of SMC research.
---------------------------------------